RNA Metabolism in SV40 Infected Cells

Dr. Gralla plans to develp and apply methods that alow in situ probing of SV40 DNA-protein regulatory complexes. Enzymes and chemicals will be introduced into transcriptionally active mammalian cells so that the active DNA becomes modified or broken. After isolation of the DNA the pattern of modification is determined by primer extension analysis, and this may be interpreted in terms of in situ interactions when compared to appropriate controls. Comparisons will be made to patterns from disrupted, transcriptinally inactive cells, and to SV40 genomes inactivated by mutation. In this way, a model will be constructed to describe the state of functional SV40 nucleoprotein complexes in vivo. The changes in these complexes that accompany the programmed switch from SV40 Early to Late transcription will also be probed. Particular attention will be paid to the role of DNA replication in allowing new factors to bind DNA as part of this genetic program. Overall, then, the goal is to describe how SV40 regulatory DNA is used in vivo as part of the transcriptional program of the virus. This research provides the perfect complement to in vivo experiments probing DNA - protein interactions ongoing in many labs. Various methods have been developed and authenticated for probing DNA - protein interactions in situ in living cells. It is crucial to know whether the in vitro experiments truly minimize the in vivo.